Collaborative Research: ANT LIA: Cumacean -Omics to Measure Mode of Adaptation to Antarctica (COMMAA)

Part I: General description
Cumaceans are small crustaceans, commonly known as comma shrimp, that live in muddy or sandy bottom environments in marine waters. Cumaceans are important for the diet of fish, birds, and even grey whales. This research program is assessing cumacean diversity and adaptation in different regions of Antarctica and evaluate this organisms adaptations using molecular methods to a changing Antarctic region. The research stands to significantly advance understanding of invertebrate adaptations to cold, stable habitats and responses to changes in those habitats. In addition, this project is advancing understanding of the biology of Cumacea, a globally diverse and biologically important group of animals. Targeted training of early career students and professionals in cumacean biology, molecular techniques, and bioinformatics is included as part of the program. A workshop at the Los Angeles County Natural History Museum will also train 10 additional graduate students, with a focus on training for underrepresented groups. Project outreach also includes social media, outreach to schools in very diverse school districts in Anchorage, AK, and creation of museum events and an exhibit at the Alabama Museum of Natural History. Finally, engagement by the team in activities related to the National Ocean Science Bowl promotes broad engagement with high school students for Antarctic science learning.

Part II: Technical Description
The overarching goal of this research is to use cumaceans as a model system to explore invertebrate adaptations to the changing Antarctic. This project is leveraging integrative taxonomy, functional, comparative and evolutionary genomics, and phylogenetic comparative methods to understand the true diversity of Cumacea in the Antarctic. The team is identifying genes and gene families experiencing expansions, selection, or significant differential expression, generating a broadly sampled and robust phylogenetic framework for the Antarctic Cumacea based on transcriptomes and genomes, and exploring rates and timing of diversification. The project is providing important information related to gene gain/loss, positive selection, and differential gene expression as a function of adaptation of organisms to Antarctic habitats. Phylogenomic analyses is providing a robust phylogenetic framework for understudied Southern Ocean Cumacea. At the start of this project, only one Antarctic transcriptome was published for this organism. This project is generating sequenced genomes from 8 species, about 250 transcriptomes from about 70 species, and approximately 470 COI and 16S amplicon barcodes from about 100 species. Curated morphological reference collections will be deposited at the Smithsonian, Los Angeles County Natural History Museum and in the New Zealand National Water and Atmospheric Research collection at Greta Point to assist future researchers in identification of Antarctic cumaceans. Beyond the immediate scope of the current project, the genomic resources will be able to be leveraged by members of the polar biology and invertebrate zoology communities for diverse other uses ranging from PCR primer development to inference of ancestral population sizes.